EAGER - Great Lakes Research for Early Career Scientists

This award is a request to fund a set of research training cruises on the University of
Minnesota’s R/V Blue Heron for early career scientists. The work will have two goals:
1) teach early career lacustrine scientists how to acquire, plan for, and manage cruises aboard
UNOLS ships, introducing a new generation of scientists to UNOLS and the academic fleet; and
2) expose members of the Great Lakes scientific community, which has an abysmally low submittal
rate of proposals to NSF requesting UNOLS ships, to UNOLS and the academic fleet. The awardee
undertaken two successful Chief Scientist Training Cruises (in 2014 and 2015) and with this
will expand the number of participants and our area of operations from solely Lake
Superior to both Lakes Superior and Michigan.
Intellectual Merit :
The training cruise envisioned herein will allow early career scientists to collect seed data
and test hypotheses for future proposals to NSF.
Broader Impacts :
This proposal intends to educate the next generation of researchers about the capabilities
of UNOLS. This type of outreach between UNOLS and potential users is not only important for
the broader scientific community, but doubly important for the Great Lakes community which
underutilizes UNOLS assets.